Enhancement and Maintenence of the Marine Seismic Processing System SIOSEIS

Henkart 9314540 This proposal requests continued support for the PI's activities developing a computer-based seismic processing system (SIOSEIS). The system is widely used throughout the community, who provide an informal advisory committee. The proposal describes improvements in display and printing programs to be done in response to recommendations by the committee. Modifications will also be made to existing systems in response to specific requests. A feature of the proposal is testimonials by users at nine institutions, who state that the system is superior to commercially-available packages.